Mapping of Ice Stream B Using SPOT Satellite Data

The large-scale view of the French Systeme Probatoire d'Observation de la Terre (SPOT) satellite images offers a means to study and understand ice dynamics and to quantify changes in ice sheets over time. Analysis on two SPOT images covering parts of Ice Stream B in West Antarctica shows that mapping of large- scale glacial features is feasible. It is proposed to acquire three additional images to obtain a more complete coverage of this area. Maps will be prepared from the SPOT HRV imagery showing the major surface features. The maps will be registered with existing surface elevation maps, flow velocity data, and selected features identifiable on low-level aerial photographs. The pattern of these glacial features will be studied in detail during the course of this project to seek an understanding of their origin. Knowledge gained from this study will help in understanding any critical changes occurring in the Ross Ice Streams.